Fast Integral Methods for Adaptive Incompressible Flow Simulations

The proposed research is dedicated to the development and implementation of integral equation methods for linear equations based on the Fast Multipole Method (FMM) for use with adaptive finite difference methods for incompressible flow. The scientific objective of this course of research is to produce new methods for the study of phenomena in incompressible flow systems which are not easily approached with existing methods. For incompressible flow systems, the divergence constraint requires the solution of global elliptic equations which greatly increases the complexity and computational cost of simulation. Many fluid systems also contain a large range of relevant length scales which necessitates the use of spatially and temporally adaptive methods. When applicable, integral equation methods offer the possibility of efficient, adaptive, high-order methods which are readily applicable to complex computational geometries and are also highly parallel. Three distinct applications of FMM will be developed and coupled with adaptive fluid solvers:
solution of the Poisson equation, solution of the surface Laplacian,
and the fast summation of impulse potentials, each in the context of a
specific physical problem. The numerical study of Boussinesq
convection, in which strong localized fronts develop, requires that a
standard Poisson equation be solved. Simulating front formation of
the quasigeostrophic thermal scalar and internal waves in two fluid
systems requires that a psuedo-differential operator equivalent to a
surface Laplacian be inverted. A new approach to modeling thin
flexible membranes in incompressible flows requires that membrane
forces be evaluated at all grid points as well as a Poisson equation
be solved to enforce incompressibility. For all of these physical
problems, adaptive methods offer the opportunity to study problems
which are unapproachable with uniform mesh methods.

The range of important fluid flow applications which the proposed
research could impact is quite diverse. Examples include modeling the
ocean or climate, predicting oil recovery or contaminant flows in the
ground, simulating combustion or nuclear reactions, and modeling the
flow of blood in organs like the heart or kidneys. For these types of
applications, the solution of linear equations represents the most
computationally intensive part of the overall computer model. The use
of integral equation methods to solve the linear equations within
these models represents a distinct change from the majority of current
computer simulations. Any increase in the efficiency in which these
equations can be solved translates directly into the ability for
scientists to run larger and more accurate models. The
mathematical and computational techniques necessary to make integral
equation methods an attractive alternative to more standard approaches
has only been fully developed in the last 10 years. Because of the
complexity and newness of these methods, little work has been done to
exploit their power in applications involving fluid flow. The
applications that will be pursued as test cases for the new methods
represent problems for which current numerical techniques are
inadequate for answering fundamental questions of interest to
scientists. The algorithms developed will also serve as a stepping
stone for future methods applicable to more complicated problems.